Frontiers in Molecular Spectroscopy and Dynamics: A U.S.- U.K. Bilateral Workshop for Young Chemists, Princeton, N.J.,June 16-18, 1989.

Dr. Geraldine L. Richmond is supported by a grant from the Physical Chemistry Program to organize a joint NSF-SERC Workshop on Frontiers in Molecular Spectroscopy and Dynamics. The workshop will involve thirty of the top young chemists in this area of research from the United States and Great Britain. The workshop will be held at Princeton University on June 16-18, 1989. This award provides travel and subsistance for the U.S. Participants only. At the recommendation of The Chemistry Division Advisory Panel, NSF and SERC are sponsoring a number of bilateral U.S.-U.K. workshops for young chemists. This workshop is in the general area of molecular spectroscopy and dynamics, and will cover a variety of topics including: spectroscopy of gas phase ions and molecules; spectroscopy of molecular, ionic, metallic and semiconducting clusters; reaction dynamics; theoretical aspects of molecular spectroscopy; and molecular structure of adsorbates at surfaces.